Comparison of Simultaneous Ground-Satellite Observations of Electromagnetic Ion Cyclotron Waves

This grant provides support for research which will make use of simultaneous observations of ultra low frequency (ULF) electromagnetic ion cyclotron (EMIC) waves by instruments located in the Arctic, the Antarctic and on satellites orbiting within the Earth's magnetosphere. These pulsations have frequencies of between 0.1 and 5 Hz. The ground-based instruments are (or were) in Sondre Stromfjord, Greenland, the Finnish magnetometer chain, and the Antarctic stations, Siple, South Pole, McMurdo, Casey, Mawson and MacQuarie Island. The satellites to be used are the AMPTE (Active Magnetospheric Particle Tracer Explorers/CCE (Charge- Composition Explorer) and Viking (Swedish). The eventual goal of this correlative study is to enhance the utility of future ground- based observations to be used as a diagnostic tool to infer magnetospheric processes in the EMIC source region.